U.S.-Hungary Research on Photochemistry and Photophysics of Copper (I) Complexes in Solution

9302792 Stevenson This U.S.-Hungary research on the "Photochemistry and Photophysics of Copper(I) Complexes in Solution" is between Dr. Kenneth L. Stevenson of Purdue University and Dr. Attila Horvath and Dr. Otto Horvath of the University of Veszprem. This work will examine (1) hydrated electron scavenging mechanisms in the photolysis of copper(I) complexes with halo-, pseudohalo, and amine ligands, and (2) luminescence and the mechanism for exciplex formation in such complexes, and in similar complexes of other coordinating metals. The study will use uv-visible adsorption and luminescence spectroscopy, and Nd-YAG laser flash photolysis in the nano-second time regime and ultraviolet wavelength region. Results should improve our understanding of the fundamental behavior of exciplexes and solvated electrons in inorganic photochemical systems. Copper offers many possibilities for efficient photogeneration of hydrated electrons, which could be used for certain chemical processes requiring reducing agents. This proposed research in chemistry fulfills the program objectives of advancing science by enabling leading experts in the U.S. and Hungary to combine complementary talents and pool research resources in areas of strong mutual interest and competence.